KDI: Networked Engineering

This proposal presents a vision of the global manufacturing economy connected through Internet and telecommunications technology. Manufacturing companies will cost-effectively design new products
in direct collaboration with customers. The global information infrastructure will enable groups of companies to organize themselves into virtual corporations and configure custom networks to support their collective activities. Supporting engineering and manufacturing activity in this future vision requires highly
interactive technologies to conceptualize, design, test, plan, fabricate, and serve products: Virtual and Interactive Prototyping (VIP). There are three multi-disciplinary thrusts to achieve these goals: (1) Collaborative negotiation for engineering decision making; (2) Proactive design and simulation software systems; and (3) Design knowledge repositories, for archival and reuse of complex experience. VIP is a fruit of the growth in computer power and networking connectivity, and will dramatically reshape the
relationships among creators and consumers. VIP increases the effectiveness of engineering teams, industry organizations and consumer communities that work together across distances and over time to rapidly and economically produce the most desirable products.